U.S.-Japan Cooperative Research: Micromanipulation Study of Mechanisms Controlling Motility in Sperm Flagella

This award will enable collaborative research between Drs. Ian R. Gibbons, Barbara H. Gibbons and Dan Eshel of the University of Hawaii and Drs. Keiichi Takahashi and Chikako Shingyoji of the University of Tokyo, Japan. They will examine the mechanisms which regulate the sliding of sperm flagellar microtubules and thereby produce bending movements. The investigators propose to use sea urchin spermatozoa for their studies. Individual spermatozoa will be held by suction at the tip of a specially shaped micropipette and the effects of pipette movements on flagellar waveform will be analyzed. Transducers for studying rapid mechanical transients and software for computer controlled movement of the micropipette will be developed. The investigators will be developing a new and potentially powerful way to analyze the still poorly understood mechanism of ciliary motility. The complementary strengths of the two laboratories will provide necessary expertise in a wide range of techniques, including micromanipulation, protein modification, video microscopy, hydrodynamic analysis, and real-time computer programming.